Modular Representations

The modular representation theory of finite groups of Lie
type is a major, active topic of mathematical research.
The area has both inspired and been strongly
influenced by developments in other areas, e.g.,
the cohomology of groups and Lie algebras,
quantum groups, characteristic zero representation theory,
perverse sheaves, and the theory of finite dimensional algebras.
The project treats both the
describing and non-describing theories. The
describing (resp., nondescribing) theory concerns
the modular representations in which the underlying module
is taken over a field having the same (resp., different)
characteristic as the defining characteristic of the group.
In the describing theory, the investigators look for
an increased role of the relatively
unexplored area of affine Lie algebra representations in
positive characteristic. In the non-describing theory,
they plan to attack several important conjectures
aimed at finding a unified approach valid for all types.
They also continue to explore possible analogies between the two theories.
Finally, Parshall continues his recent work on cohomology
computations, while Scott extends his recent computational work.

In mathematics, a "group" is an abstract embodiment of symmetry.
In addition to applications to other parts of mathematics, concrete
realizations of groups can provide powerful constraints on the behavior of
complicated physical and communications systems. This project concentrates
on determining the ways in which the most important abstract finite groups
find concrete representations as square matrices over finite number systems.
The groups and representations the investigators study comprise the most
important basic ingredients for creating a general theory of all finite
group representations. Over the past century, similar theories for
continuous groups have played a large role in quantum theory and the theory
of elementary particles. Their finite analogs have already proved valuable
in the design of communications and data storage devices, though this finite
theory remains very incomplete. In the future, one reasonably expects that
the finite discrete worlds of computers and communications will become even
more important. The task of creating a viable general theory of finite group
representations -- as is the investigators' long-term goal -- is, thus, a
central problem for the future.